Partial Support for the ACM Third Conference on Computers, Freedom, and Privacy

Support for participants, travel, organization, and proceedings is provided for an intensive multidisciplinary survey conference on the implications for privacy and freedom of the interaction of computers, computer data banks, and computer networks. Topics covered include electronic mail ownership, privacy and security of computerized personal information, appropriate use of electronic third party direct marketing information, the many faces of privacy,m electronic democracy, electronic voting, m censorship and free speech in networks, digital telephony and cryptographic policy, sexual politics on the network, medical information privacy, international network privacy, and case studies of advanced databank systems.